EXP-SA: Detection of Explosives Based on Optical Chemosensors Using Nanocomposites from Porous Silicon Photonic Crystals and Sensory Polymers

0730115
Euler

The project will develop a novel, highly sensitive, selective, and adaptable opto-chemical sensory system (sensor array) based on organic-inorganic nanocomposites leading to improved portable, small, sensitive, selective, adaptive, and real-time detectors for explosives. The proposed new concept will provide a nanocomposite sensory system with superior sensing properties for explosives with low volatility.